Conference: The 2026 Gainesville International Number Theory Conference

This award is to support participants at the 2026 Gainesville International Number Theory Conference, which will take place March 18-22, 2026 at the University of Florida, Gainesville. Research in number theory has a long and illustrious history going back to the ancient Greeks. Recent research in number theory has made significant advances that has led to important applications to other areas such as physics, computing, and data security. Two very recent sensational developments have been on the distribution of multiplicative functions in short intervals, and on the Kummer-Patterson Conjecture relating to cubic Gauss sums. The conference will feature three lectures by Maksym Radziwill on these topics. There will be over thirty main lectures and seventy twenty-minute research presentations. Special effort will be made to support students, early career mathematicians and researchers with no other support.

The conference will cover the following topics: q-series, partitions and modular forms, analytic number theory, algebraic number theory, irrational and transcendental numbers, arithmetic geometry, and computational number theory. The study of irrational numbers, which dates back to Greek antiquity, continues to be an active area of research. Recently, spectacular advances have been made in the theory of irrational numbers by applying advanced methods. Conference talks by Frank Calegari and Yunqing Tang will report on these exciting new developments. Historically the synergy between analytic number theory and the combinatorial/algebraic world of partitions and q-series has been extremely fruitful, starting with the collaboration of Hardy and Ramanujan. Throughout the twentieth century and into the twenty-first, we have seen each area enrich the other. For example, mid-twentieth century workers like Dyson and Atkin found fruitful interactions between these two areas, and the potential for further interactions along these lines by the participants in this conference is significant and tantalizing. Similarly, L-functions and modular forms have been the catalyst for many developments in computational number theory, and vice versa. The talks and papers of the conference will be widely disseminated by making presentations and abstracts available on the conference web page and by publishing a refereed conference proceedings. More information can be found at https://qseries.org/alladi70.